Engineers and Economic Conversion: Roles, Values and Attitudes

The pressures of international economic competition and the changes in eastern Europe increase the importance of planning for conversion of our defense economy to civilian work. Engineers are among those who are most likely to be involved in conversion issues and to affect the conversion process in a number of industries, such as electronics, aerospace, transportation equipment, and instruments. This workshop project will address the range of issues -- ethical, social, economic, and technical - - which engineers confront as they consider roles in the economic conversion process. A research team will guide this project. The approach is to examine these issues through discussion of prepared presentations by academic researchers and practicing engineers from the defense industry in a workshop which includes representatives from a range of engineering societies. The findings will be synthesized by means of discussion in the workshop and by the work of the research team immediately following the conference. The research team plans four products for dissemination: a synthesis of papers in the proceedings and three monographs, one on research needs, one on policy implications, and one on implications for engineering education. Members of American Engineers for Social Responsibility and representatives of five other engineering professional societies will play a leading role in disseminating these products to appropriate members of congressional committees and federal agencies, as well as to their members. This proposal is a reasonable request for support to enable leading scholars and practitioners to begin to address ethical issues as well as practical problems for engineers in the conversion process. The principal investigator and research team are well qualified; institutional support is very good; the workshop plans are careful and appropriately meshed with related activities; dissemination is likely to be broad and to reach a variety of audiences. Support is highly recommended.